Biaxial Alignment of High-Tc Superconductors as a Paradigm for Fabricating Granular Single Crystals

The proposed work would orient small, single crystalline grains of high temperature superconductor (HTSC) powders by exploiting both the magnetic and shape anisotropies, in order to create a bulk sintered 'granular single crystal' with complete crystalline alignment. The potential of this approach for producing high critical current polycrystalline pellets will be explored by studying the effects of annealing, residual misalignment, and surface treatment on the transport properties of these materials. Alternative approaches for maintaining oxygen stoichiometry in the densified materials will be explored. Detailed pole figure analyses and microscopic grain boundary studies will be undertaken together with various forms of pinning mechanisms.